Symbolic Representation Based Partial Order Methods

Symbolic Representation Based Partial Order Methods
S. Purushothaman Iyer

Symbolic representations are used in analysis of finite and infinite
state concurrent system. However, they could be subjected to
constraint explosion much like state explosion in analysis of finite
state designs of concurrent systems. The reason for both of these explosions
is the consideration of all interleavings, of a concurrent system, during their
analysis.

Partial-order techniques depend upon the notion of independence among
actions to avoid considering all possible interleavings. The proposed
research will investigate the notion of unfolding, which aids both in
discovery of independent actions and in succinctly representing the state
space of systems. In particular, the proposed research will address the
following topics:

o How to build unfoldings for real-time automata as available, for
instance, in the tool-set UPPAAL.

o Implementation of an unfolding-based partial order method for UPPAAL.

o A comparative (theoretical) investigation of unfoldings and current partial
order methods, with a view to generalizing unfoldings to other infinite
state systems.

o Empirical evaluation of the proposed implementation against current
practices.

The proposed research will aid in faster, and more complete, analysis of
infinite state concurrent systems than is currently possible.